Research in Geometric Analysis

Abstract

Proposal: DMS 9803399
Principal Investigator: Jie Qing

The proposed project consists of two related research topics. The
first is focused in the investigations in developing and using
nonlinear analysis of partial differential equations to study
formations of singularities in various problems, arising from
theoretical physics mostly in differential geometrical settings,
including harmonic maps, Yang-Mills-Higgs theory, harmonic map flows,
and curvature driven flows. The main approach is based on scaling
methods. One problem that I am working on now is to understand some
finer structure of the compactified spaces of solutions (harmonic
maps). This is an essential problem for one to understand the
formation and nature of singularities. The second part is the
investigation of the interplay of geometry and analysis. The central
problems are to understand the best constants in sharp Sobolev type
inequalities in terms of the isoperimetric constants, and to
understand how the local analytic quantities are related to the global
geometry even the topology. One of the approach is to study the
spectral theory of various natural differential operators associated
with the geometry, especially the conformally covariant geometric
differential operators.

The formation and nature of singularities in nature are of enormous
interests to human beings. The kind of singularities that will be
studied in the proposed project are particularly of great interests to
the material sciences and meteorology. For instance, the formation
and nature of singularities in Ginzburg-Landau problems as a
particular case of the Yang-Mills-Higgs theory was proposed to study
super-conductivity and other super-fluids phenomena. The effect of
the scale that one uses to describe the system turns out to be very
important. This explains that to understand anything that survives
under changes of scales is very crucial. Therefore our main approach
is based on the scaling methods. The second research topics in the
proposed project is basically aiming at developing and understanding
some mathematical tools that are expected to be essential for the
first topics. The proposed project is also closely tied with the
graduate program in the department of Mathematics at UCSC by a plan to
generate research activities to the benefit of graduate student
interested in this area.